Beam Induced Surface Alloying: Metastable Phases

This collaborative program of research between J. W. Mayer, Cornell University; S. S. Lau, University of California (San Diego); and J. M. Poate, AT&T Bell Laboratories at Murray Hill will investigate ion- induced formation of crystalline, metastable phases. The study will emphasize three major areas: 1) aluminum-transition metal systems with emphasis on ion-induced formation of the quasicrystalline, icosahedral structure, 2) direct, hot substrate, ion-induced transformations to the metastable phase in binary systems near deep eutectics, and 3) formation of metastable phases in ternary systems using ion irradiation of metallic alloys on silicon or germanium and of germanium-silicon alloys on metal films. The primary analytical approach will be based on Rutherford backscattering, x-ray diffraction, transmission electron microscopy and in-situ electrical measurements. The research is a continuation of a previously successful and productive investigation under support from the NSF (DMR-8106843). Research on beam-induced metastable phases is a promising path to the development of new classes of materials with unique surface and electronic properties. The objective of the research is to provide important information on the physics of these new materials and on the range of new compositions and properties that may be available. Fundamental understanding is needed in this area to provide guidance for materials scientists and engineers who are now seeking new materials and processing techniques. The research will also have a significant impact on the production of qualified researchers in the field of materials science and electronics.